International Conference on the Foundation of Statistical Inference: Applications in the Medical and Social Sciences and in Industry and the Interface with Computer Science

Abstract:
DMS-0086688
PI: Fienberg, Stephen E

A special international conference, "Foundation of Statistical Inference: Applications in the Medical and Social Sciences and in Industry and the Interface with Computer Science", will be held in Israel at the conference center at Kiryat Anavim near Jerusalem, on December 17-21, 2000. This conference brings together leading experts in statistics and its applications to discuss both the issues in the foundations of inference and their relevance to the many and varied uses of statistics in the medical sciences, the social sciences, and in industry. A similar conference was held in December 1985. A special focus at this conference will be on the interface between statistics and computer science. Funding will provide travel support for approximately 20 U.S. primarily new researchers and members of underrepresented groups, and invited speakers and participants. The KCS Program in the CISE directorate and the MMS Program in SBE directorate is providing co-funding along with the Statistics Program in MPS.